Mathematical Sciences: On Detecting and Estimating a Change in a Regression Model

This research examines the problem of detecting and estimating a change in a statistical regression model that is composed of two different linear phases. The nonstandard behavior of the likelihood ratio statistic will be exhibited and analytic approximations to the sampling distribution of various test statistics will be given for the multiple linear regression model. Power functions and confidence regions will be derived. The methods developed to solve boundary crossing problems in sequential analysis will be applied to these problems.